Educating Green Citizens and Scientists for a Sustainable Future

Chemistry (12)

The Hendrix College Chemistry Department is developing green laboratory experiences focusing on detecting metals in the environment using modern instrumentation for its entry-level courses: General Chemistry I & II for science majors and Chemistry of the Environment for non-science majors. Five four-week projects are being developed, providing 12-weeks of laboratory for the two-semester majors' sequence and eight-weeks for the one-semester non-majors' course. As these projects are being implemented, they are, with the help of an education specialist, being assessed closely. The results are providing data to direct the re-crafting of the experiences. The assessment tools include, but are not limited to, written exams, laboratory practical exams, and student self-assessment surveys. The project materials with assessment data are being used for publication and dissemination through talks and web sites into the chemical education community.